PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Laurel A Ohm is "Modeling and analysis of active filaments in a Stokesian fluid." The host institution for the fellowship is New York University, Courant Institute, and the sponsoring scientist is Michael Shelley.